Pseudoholomorphic Curves in Symplectisations and Legendrian Knots

Abstract

Award: DMS-9971196
Principal Investigator: Casim Abbas

Significant progress has been made in the study of the
Reeb-dynamics of a three dimensional contact manifold and its
topological implications. Past research focused on periodic
orbits of the Reeb vectorfield, while this project deals with a
different class of trajectories, the so-called characteristic
chords. These are orbits of the Reeb vectorfield that hit a given
Legendrian knot twice at two different times (or more general, a
given Legendrian submanifold). In the case of periodic orbits the
main tools were pseudoholomorphic curves in the symplectisation
of the contact manifold with domain being a punctured Riemann
surface without boundary, while in the case of characteristic
chords the domain will have boundary and also punctures on the
boundary. A free boundary condition will be imposed. One aim of
this project is to investigate when characteristic chords exist,
a question which is related to a conjecture of V.I. Arnold in
contact geometry. The method developed by the principal
investigator is a new version of a classical result by E. Bishop
about local fillings of a real surface near an isolated elliptic
complex tangency. The other aspect of the research project is
joint work with Helmut Hofer which is providing the analytic
setting for a new invariant of Legendrian knots ("Contact
Homology") in a three dimensional contact manifold, where
pseudoholomorphic curves on punctured Riemann surfaces play the
key role. This would also provide a more systematic approach to
the existence question for characteristic chords, since existence
results would imply nontriviality for the invariants in certain
cases. Approaching the existence question of characterictic
chords by filling methods is only possible if the contact
manifold is three dimensional while the construction of Contact
Homology should also work in higher dimensions where very little
is known about the dynamics of the Reeb vectorfield. On the
other hand, every closed three dimensional manifold admits a
contact form, with between dynamics and topology closely related.

This research project deals with the theory of Legendrian knots
and dynamical systems induced by a Reeb vectorfield. In recent
years close relationships have been found between knot theory and
quantum field theory, a part of modern theoretical physics.
Dynamical systems of Reeb type describe a very diverse spectrum
of phenomena in physics, such as the motion of a satellite in the
presence of gravitational forces, or the motion of the particles
of an ideal incompressible fluid if the motion is in an
equilibrium (steady) state and the pressure is almost constant.